Collaborative Research: FRG: New development on nonparametric modeling and inferences with biological applications

The objectives of this proposal are to develop new and widely applicable
semiparametric and nonparametric approaches to solve challenging
statistical problems from computational biology. Frontiers of biological
research such as normalization and analysis of microarray and proteomic
data, functional connectivity of brains, covariate effects on longitudinal
and functional data, and prediction of individual response trajectories
have generated a number of outstanding statistical challenges. Several
new semiparametric and nonparametric models have been introduced to
address the imminent needs for the aforementioned biological applications.
A number of innovative methods on nonparametric estimation and inferences
are proposed. Their properties will be investigated via both asymptotic
theory and simulations. Their efficacy in biological applications will be
carefully scrutinized. This proposal not only introduces a number of
innovative techniques and useful statistical models, but also provides
various new insights into nonparametric inferences. The research findings
will have significant impact on the future development of statistical
theories and methodologies.

Technological invention and information advancement have revolutionized
scientific research and technological development. Quantitative methods
have been widely employed in scientific communities. They have played
pivotal roles in knowledge discovery. This proposal intends to develop
new nonparametric techniques and theories that arise from frontiers of
scientific development. In particular, the investigators will develop
models and cutting-edge technologies for the analysis of microarray,
proteomic, longitudinal and functional data and fMRI brain images. Common
characteristics of these data are their complexity and size, where
nonparametric techniques are particularly powerful and under developed.
The proposed techniques address imminent needs in computational aspects of
molecular biology, neurology, and epidemiology. In addition, they will
integrate new mathematical developments with those in science and
engineering, which empowers new knowledge discoveries and prudent policy
making. Undergraduate and graduate students, postdoctors and
underrepresented groups will be trained as results of this research.